Group Proposal in Topology

9803633
May
This group project in topology deals with research in a wide range
of topics in topology and related areas of algebra, algebraic K-theory,
and geometry. May studies various areas centering on global structures
in stable homotopy theory and related fields. He and his collaborators
have opened up stable homotopy theory to serious point-set level
algebraic study with their recent new approach to highly structured ring
and module theory. Rings, modules, and algebras can now be defined as
objects with well-behaved products in a symmetric monoidal category of
spectra, allowing many constructions and applications that were not
possible previously. He and Greenlees have opened up new interactions
between equivariant and non-equivariant stable homotopy theory with
their analysis of Tate cohomology and their proof of a completion
theorem for module spectra over MU. Rothenberg studies analytic and
combinatorial torsion invariants in geometric topology. He and his
collaborators have explored generalizations of the classical invariants
to equivariant and non-compact situations and have constructed torsion
invariants for fiber bundles with compact fibers, these being cohomology
classes rather than just numerical invariants. Weinberger's work centers
on geometry and analysis on compact spaces with singularities and on
noncompact manifolds. His surgery theory on stratified spaces can be
applied directly to various problems and has led to a changed perspective
on group actions, both in terms of answering old questions and in
formulating new ones. The perspective is completely integrated with the
theory of homology manifolds at the level of conjecture, and somewhat
at the level of theorem. Furthermore, detailed analysis of what would
be involved in proving such conjectures seems to have deep connections
with logic, complexity theory, and non-commutative geometry.
A major emphasis of the project is graduate education. With three
junior faculty and fifteen current graduate students in topology at
Chicago, the topology program supported by this grant is one of the
world's largest. In the three years 1996-98, it has graduated ten new
PhD's, with 1998-99 jobs at MIT (2), Michigan (2), Illinois (2), Berkeley,
CUNY, Rutgers, and Utah. Students supported on the grant work in a wide
variety of areas of algebraic and geometric topology, and some of them
work on the interfaces between algebraic topology and algebraic geometry
on the one hand and between geometric topology and differential geometry
on the other. Although focused on topology, the work supported by this
grant impinges on many other areas of mathematics. Some of it also
impinges on current work in mathematical physics, where the kinds of
topological and geometric structures studied by the investigators have
direct relevance.
***